RUI: Laser 40Ar/39Ar Study of Muscovite from the Major Tectonic Zones in Southwestern New England

9406062 Cheney Laser Argon dating studies have established that substantial age variations occur within single muscovite crystals as a function of thermal history, size, and post-crystallization deformation. The core-to-rim age discordance of these crystals can have significant applications in studies of crustal development. This project will use the well-studied southwestern New England area as a field test area to develop a robust methodology for interpretation of such spectra. Successful results will have wide application to tectonic studies.